A Materials Research Science and Engineering Center

963265 McMillan The Material Research Science and Engineering Center (MRSEC) at Arizona State University supports research on the synthesis of new families of materials, with a focus on the synthesis of materials at high pressures. The research combines experimental and theoretical studies to predict the stability, properties, and appropriate pressure range for the synthesis of novel target phases of nitride glasses, oxide perovskites, carbon nitrides, and chalcogenides. Additional research efforts address the process of vitrification in amorphous materials and the synthesis and characterization of epitaxial nitride films. The MRSEC supports shared experimental facilities for materials research, exploratory research through seed funding, and collaborations with industry and other academic institutions. Educational outreach programs include development of educational modules on materials science for middle school students and a collaborative research program with the College of Eastern Utah. The Center supports 13 senior investigators, 4 postdoctoral research associates, 12 graduate students, 1 technician, and 5 undergraduates. The MRSEC is directed by Prof. Paul McMillan. %%% The Material Research Science and Engineering Center (MRSEC) at Arizona State University supports research on the synthesis of new families of materials, with a focus on the synthesis of materials at high pressures. The MRSEC supports shared experimental facilities for materials research, exploratory research through seed funding, and collaborations with industry and other academic institutions. Educational outreach programs include development of educational modules on materials science for middle school students and a collaborative research program with the College of Eastern Utah. The Center supports 13 senior investigators, 4 postdoctoral research associates, 12 graduate students, 1 technician, and 5 undergraduates. The MRSEC is directed by Prof. Paul McMillan. ***